US-Brazil Cooperative Research: Genetic Analysis of Relationships between Tropical Brazilian and Caribbean Marine Faunas

9908673
Knowlton
This US-Brazil award provides support for Dr. Nancy Knowlton of Scripps Institution of Oceanography to collaborate with Dr. Antonio M. Sole-Cava of the Universidade Federal do Rio de Janeiro on the genetic analysis of relationships between tropical Brazilian and Caribbean marine faunas.
These scientists will collect a wide range of fauna from reef systems off the coast of Brazil. The study of this fauna will provide important taxonomic information from a little studied region of the world and increase our understanding of the true nature of the relationships between Brazilian fauna and fauna from other regions. After collection, the researchers will use a suite of molecular markers to study the similarity or divergence between individuals found in Caribbean and Brazilian waters that are thought to be the same species.
***